Modification of Heat Transfer Characteristics of Turbulent Boundary Layers by Large-Eddy Breakup Devices

Large-eddy breakup devices have been shown to reduce substantially the viscous drag in turbulent boundary layers. This study investigates the modification of the heat transfer characteristics of turbulent boundary layers by such devices. Both averaged and instantaneous measurements of the heat transfer will be performed. The measurements will be obtained by a two-dimensional array of sub-miniature thermocouples, and will allow the determination of the instantaneous spatial thermal field and its evolution in time.